An Introductory Astronomical Image Processing Laboratory

9352033 Toot An image processing facility is being used in an observatory for introductory astronomy laboratories. Five telescopes, ranging in diameter from 9 to 32 inches, serve as an excellent base for efforts to expose science students and non-scientists alike to both the practical side and the beauty of observational astronomy. However, in a desire to convey the quantitative aspects of astronomy more fully, as well as to show the current state of the field, more on electronic image acquisition and analysis is being included. Our experience with a relatively inexpensive CCD (the ST-6 from Santa Barbara Instruments Group) convinces us that this goal can be accomplished on a relatively small budget while maintaining quantitative rigor. A useful and innovative program can be put in place with a second of these CCD's and the installation of a computer laboratory so that students can be taught the appropriate software efficiently and also have access to the computers for data analysis. Using a set of projects which demonstrate the importance of quantitative measurements, while at the same time allowing for a wide range of mathematical skills, students can obtain a valuable exposure to the workings of modern science. ***